Upgrades to the NSF Arizona Accelerator Mass Spectrometry Laboratory

This award is funded under the American Recovery and Reinvestment Act of 2009 (Public Law 111-5).

NSF support for equipment upgrades and components form an integral part of continuing the vital role of the Arizona AMS Laboratory and maintaining our equipment at modern standards. The facility's two machines are in need of vacuum equipment and computer upgrades to bring them up to modern equipment standards. These upgrades to the Arizona AMS Laboratory will allow us to improve these AMS facilities to 21st century conditions. This will facilitate our service role for NSF-sponsored research projects.

Scientists at the Arizona AMS Laboratory contribute to many fields of research on radiocarbon dating and studies of other radionuclides. These upgrades will improve the operational conditions of the AMS machines at Arizona and allow us to continue our research with less down-time due to equipment problems and failures. The laboratory will also be in a better position to provide service to NSF researchers using our facility.